CO2 Laser Assisted Vibrational Overtone Spectroscopy

In this project in the Experimental Physical Chemistry Program of the Chemistry Division, Rizzo will pursue a new approach for measuring the spectroscopy of highly vibrationally excited molecules on the ground potential energy surface using a CO2 laser to selectively dissociate molecules promoted to those highly excited levels by means of overtone excitation. In these experiments he will use infrared multiphoton dissociation as a detector in infrared-optical and optical-infrared double resonance spectroscopy experiments conducted in low-pressure static gas cells as well as in supersonic free jets. These investigations are extensions of previous three-laser experiments complicated by the addition of the fourth CO2 photodissociating source. Specific systems for study consist of molecules which have a light-atom stretching vibration suitable for overtone excitation and which can be photodissociated to produce a fragment that can be probed using laser-induced fluorescence. Examples of such molecules include alcohols, amines, cyanides, and halogenated alkanes. %%% Vibrationally excited molecules are commonly produced in chemical reactions or by absorbing light followed by loss of some of the excitation energy in internal processes. Such highly excited molecules can be significantly more reactive than their unexcited counterparts, so that it is important to understand the dynamics involved with such molecules, such as how quickly they lose their energy internally, in collisions with walls and other species, and how quickly they react. Understanding such dynamic processes is important for developing accurate models of combustion, atmospheric processes, chemical laser action, and chemical vapor deposition, which is used to make thin-film coatings. Professor Rizzo's studies will help gather information relevant to understanding internal energy conversion.